A Design Procedure to Determine Critical Dissimilarities in Horizontal Alignment and Enhance Traffic Safety by Appropriate Low-Cost or High-Cost Projects

Surveys have determined that the majority of accidents, injuries, and fatalities on two-lane rural roads are related to improper speed estimations. A technique to achieve a correction for this problem is to improve the consistency in the horizontal alignment which should result in an improved consistency in the driver speeds and enhance traffic safety. This project will investigate a new design procedure to analyze the consistencies and inconsistencies in road characteristics and the corresponding driving behavior. The project will determine boundaries for good design practices, boundaries to correct geometric defects in the horizontal alignments, and will recommend solutions for the different levels of dissimilarities in horizontal alignments. The results will be very useful to transportation engineers and officials with respect to the design or redesign of two-lane rural highways.